Nuclear Physics Research with Electrons, Photons, and Antiprotons

The Nuclear Physics Laboratory (NPL) of the University of Illinois conducts fundamental research in nuclear science using an in-house superconducting electron accelerator (MUSL-II) and a number of higher energy user facilities located in the US, Canada, and Europe. The central thrust of NPL research is electromagnetic nuclear physics (EMNP); i.e., electron scattering and photoreactions. Smaller programs of anti-proton annihilation studies using CERN facilities and of accelerator physics are also being conducted. MUSL-II provides continuous wave electron beams at energies up to 100 MeV for use in electro-and photo-induced coincidence reaction studies, primarily related to nuclear structure. Following conclusion of MUSL-II research activities, a program of full user mode EMNP research will be conducted, principally at the MIT/Bates, University of Saskatchewan, and CEBAF electron accelerators, aimed generally at sub-nuclear degrees of freedom (nucleons, mesons, and quarks). Instrumentation development is an important function at the NPL. Large scale equipment construction projects will be undertaken in support of the user program and including detectors, electronics, spectrometers, specialized targets, polarized electron sources, and related equipment. Graduate students are integrated into all aspects of NPL research, including equipment development, and their training is a prominent aspect of NPL activities. Approximately 16 graduate students in residence will be supported by this grant.